Three-Dimensional Structure and Physical Properties of a Methane Hydrate Deposit and Methane Gas Reservoir, Blake Ridge

A 3D seismic survey over the gas-hydrate field on Blake Ridge is planned with the objective to extend information from ODP sites drilled during Leg 164 over a part of the hydrate province. R/V Ewing will be used to obtain two related seismic data sets: 1) and 3D image of the hydrate deposits, and 2) a study of the P to S converted waves in the hydrate province. The obtained information, when combined with chemical, sedimentological and downhole logging information from Leg 164 will constitute a rare opportunity to establish benchmarck linkages between seismic signature (reflectivity, P-velocity, S-velocity) and amounts and distriubtion of hydrate and free gas. The data will also provide basic 3D geometries of stratigraphy, structures, hydrate concentration, and gas accumulations over the study area. The information provided by this experiment will help constrain serveral key processes that occur in gas hydrate provinces, including methanogenesis, hydrate formation and decomposition, and migration of free gas.